Applications and extensions of p-adic Hodge theory

Number theory is one of the oldest of all branches of mathematics, with its first important results dating back more than two millennia. While whole numbers are in a sense discrete objects, in modern times they are often studied using techniques of continuous mathematics, such as calculus. The PI's work focuses in particular on the use of p-adic numbers, which were introduced early in the 20th century as a number system analogous to the real numbers, but recording information about divisibility of integers. In addition to theoretical results, the p-adic numbers give rise to computational techniques with some relevance in computer science, especially in modern cryptography.

Building on recent breakthroughs in p-adic Hodge theory, we extend the field in several different directions. We extend the theory of p-adic representations to allow coefficients in larger rings, with an eye towards applications to the p-adic interpolation of automorphic forms. We also allow the replacement of p-adic Galois groups with etale fundamental groups; this is expected to shed new light on the p-adic Langlands correspondence. Finally, we consider ways to replace the p-adic numbers with the full ring of integers; this involves systematic use of Witt vectors over arbitrary rings.